Research Experience for Undergraduates

Continued funding for an ongoing undergraduate research program that for five years has been training electrical engineering and computer science students during the summers before their senior years is sought. Students will be recruited from a variety of other schools, including primarily undergraduate institutions. The research environment will be enriched by additional undergraduate students funded from other sources. Each participant will have regular meetings with an individual faculty mentor to plan work and review progress throughout the eleven week program. Project topics in electrophysics will include artificial plasmas, microwave propagation. microstrip antennas, frequency doubling in lasers, picosecond opto- electronics, and thin film devices. Information systems topics will include image communication, multi-variable feedback control, continuous phase modulation digital signalling, LAN simulation tools, and robotics. All will benefit from extensive interactions with participating faculty and graduate students. Participants will have informative tours of our research laboratories. There will be two or three seminar presentations to the group by leaders from industry, universities or government agencies. A tour will be arranged at a nearby industrial lab or national laboratory. The program will terminate with a two-day research review during which each student will make a presentation and answer abstract of his report. A prize will be awarded to the best project.